Early Thrust Nappes and Late Metamorphic Shear Zones in Acadian Tectonic Development and Metamorphism, Central Massachusetts and Adjacent New Hampshire and Connecticut

The Devonian Acadian orogeny was the result of collisional tectonics involving North America and continental material to the east. Acadian tectonic development involved early fold and thrusts nappes followed by complex back folding with structural and metamorphic fabrics accompanying stages. The pattern of meta- morphic isograds and reconstructed P-T trajectories bear a complex relationship to the deformation stages. This combined structural and petrologic study is aimed at developing a clearer and chronologically more precise tectonic and thermal history of the belt. Exposures of high metamorphic grade in central Massachusetts can be correlated with fossil-bearing units to the north, thus allowing stratigraphic sequence to be a useful tool in understanding the pattern of large-scale structural features and the growth of metamorphic minerals will be used to establish the relative ages of deformation and thermal events and to evaluate the sequence of pressure and temperature conditions to which different rocks were subjected. Results will help develop a fuller understanding of mid-crustal processes during the develop- ment of this major mountain belt.